CSR: Small: High-Performance and Energy-Efficient Single-Level Stores: Efficient Coordinated Management of Storage and Memory

Modern computing systems require manipulation of persistent
data. However, the mechanisms to access persistent data are separated
from the mechanisms to manipulate such data in a traditional two-level
storage model: persistent data is stored in non-volatile storage, such
as hard disks or solid-state disks, whereas it is manipulated in
volatile memory, such as DRAM. Unfortunately, this decoupled model of
system design leads to large amounts of inefficiency in terms of both
performance and energy.

This research undertakes a rethinking of the memory and storage
systems in the presence of new and emerging non-volatile memory
technologies such as phase-change memory , spin-transfer torque RAM,
and memristors. These technologies promise large capacities at low
latency, making them prime candidates for the design of a single-level
coordinated memory and storage system where the manipulation and
storage of all data are unified. Yet, there are significant
application-level and system-level efficiency and correctness
challenges in devising such a single-level store with emerging
technologies. The central goal of this project is to develop
hardware/software cooperative techniques to enable high-performance
and energy-efficient single-level stores in computer systems targeting
a wide range of applications in cloud computing, client systems, and
mobile systems.

It is expected that research performed in this project will enable new
applications and much more robust and efficient data storage systems,
making our daily lives that increasingly depend on data processing
better and more productive. Enabling unified memory and storage for
modern computing systems can largely reduce wasted work and take
advantage of emerging low-power technologies, thereby taking a large
step in making computing more energy efficient.